Band-gap Materials, Mesoscopic Structures, and Related Topics

NSF Award Abstract - DMS-0072248
Mathematical Sciences: Band-Gap Materials, Mesoscopic Structures, and Related Topics

Abstract

0072248 Kuchment

The aim of the project is to develop and advance analytic and numerical methods for studying
wave propagation in a band-gap or mesoscopic medium. Issues under study include graph
models for mesoscopic band-gap materials and circuits of quantum wires, unusual spectral
properties of such materials discovered previously, effects of localized impurities in a periodic
medium, waveguiding properties of linear defects, and spectral properties of periodic materials.

BAND-GAP MATERIALS have attracted considerable attention since the idea was suggested
in 1987. A photonic crystal is a low-loss dielectric material, consisting of a periodic structure of
regions with different values of the dielectric constant (for example, air bubbles placed
periodically into an optically dense dielectric). Under appropriate conditions such a material can
exhibit band gaps, that is, ranges of frequencies in which electromagnetic waves cannot
propagate through the material. Acoustic, elastic, metallic, and magnetic analogs of photonic
crystals are also important, although much less studied. Band-gap materials have impressive
applications to high efficiency light sources, antennas, low threshold lasers, mirrors, optical
information transmission lines, quantum computers, sound attenuation, heat insulation, and in
many other areas. MESOSCOPIC SYSTEMS are extremely thin (as narrow as 2nm) surfaces
(quantum walls), wires (quantum wires) or dots (quantum dots) carved out of semi-conductors or
super-conductors. These objects enjoy a wealth of applications even more striking than the ones
of band-gap materials. This project is an investigation of the intricate mathematical problems, in
many cases similar for the two types of media, that arise in modeling the creation of these
materials and in studying their properties.